Feynman Integral and Related Topics in Mathematics and Physics

Abstract: Conference on The Feynman Integral and Related Topics
In Mathematics and Physics,
University of Nebraska, Lincoln
May 12-14th, 2006.

The proposal is for partial support of a 3 day conference on the mathematical theory of Feynman integrals and related topics in mathematical physics.

The primary objective of the meeting is to bring together researchers and young investigators studying, or using, Feynman integrals in their work. The 11 plenary lectures will be given by well-known experts. The funding will be used for the travel and living expenses of some of the principal speakers and to support the participation of students and junior researchers.